U.S.-Japan Joint Seminar: Dynamical Excitation by Exotic and Highly Charged Ions/June 1990/Anchorage, AK

This award will support the participation of eight U.S. scientists in a joint seminar on "Dynamical Excitation by Exotic and Highly Charged Ions," to be held in Anchorage, Alaska, June 18-22, 1990. The seminar will focus on topics of mutual interest to leading American and Japanese experts in the field of fundamental processes in the physics of ions. Recent advances in the field, such as the development of low energy antiproton beams, the higher energies of the accelerator facilities available for atomic collision experimentation, the imminent availability of storage rings, and other developments, make this a propitious time for a joint seminar. The central objective of the program will be to identify the limitations of our current understanding of fundamental processes in the physics of exotic and highly charged ions and to delineate new ways in which particle accelerators can be used to advance science in this area. The co-organizers of the seminar are Professor John F. Reading, Department of Physics, Texas A & M University, and Professor Fuminori Fujimoto, The Institute of Scientific and Industrial Research, Osaka University, Japan. Two previous U.S.-Japan seminars in this field were very successful in exploring topics of mutual interest to participants from both countries, in defining new research directions, and in promoting joint research efforts. This seminar has similar goals. The physics of atomic collisions plays an important role in determining the behavior of matter at the atomic and molecular level. Research in atomic and molecular collision phenomena, therefore, can have an important influence not only on various areas of physics, such as plasma physics, surface physics, condensed matter physics, and astrophysics, but also on other disciplines and technologies such as weather forecasting and forensic medicine. Researchers in both the United States and Japan are very active in this field, and leaders from both countries will participate in the seminar. It is planned to publish the proceedings of the seminar in a special issue of Nuclear Instruments and Methods.